Coordination of WAGS-4 Campaign: Planning, Observation and Data Analysis

It has become increasingly clear in recent years that the quantitative study of ionosphere-thermosphere dynamics can be most effective through global, multitechnique investigations. Observational techniques and modeling efforts have progressed to such a level that those studies are now feasible. Indeed, the CEDAR initiative in this country as well as the international World Ionosphere Thermosphere Study (WITS) and Solar-Terrestrial Energy Program (STEP) of SCOSTEP have been planned exactly in response to such a challenge. The World Acoustic Gravity Study (WAGS) is an important part of these programs. Acoustic gravity waves, and the associated traveling ionospheric disturbances (TIDS) have been the subject of many theoretical and experimental studies. A series of landmark theoretical papers by Hines (1960). Because of the large spatial coherence of the auroral- generated large-scale TIDs, it is imperative that world wide observational campaigns be conducted if one wants to study the overall source-generation-propagation mechanisms associated with these waves. WAGS was designed for this purpose.